Dissertation Research: The Use of Satellite Remote Sensing in Archaeology

Under the guidance of Drs. Geoffrey Conrad and Emilio Moran, Mr. Eduardo Neves will collect data for his doctoral dissertation. Through remote sensing techniques as well as on the ground survey and excavation Mr. Neves will conduct an archaeological study in the Uaupes river basin area of Amazonia. While in the Brazilian rainforest considerable archaeological research has been conducted in floodplain regions, very little is known about more upland areas which are not regularly inundated. The Uaupes basin was selected because it represents such an area. Extant groups have been the subject of ethnographic research and Mr. Neves work will help to set them into a deeper chronological framework. The research itself consists of three stages. The initial phase includes an analysis of digitalized Landsat 5 Thematic Mapper satellite images. The objective is to identify potential loci of archaeological sites according to criteria derived from ethnographic and ethnohistoric sources. Secondly, a systematic archaeological survey will be carried out in selected study units. The goal is to asses the predictive power of the spectral reflectance analysis and to obtain data on the culture history of the region. Finally, further work will be performed to correlate the data obtained in the field with the image analysis of the spectral data. This work is important for several reasons. First it will provide data of great interest to many archaeologists and social anthropologists. Secondly, it will help to develop an analytic technique which may prove useful in many heavily vegetated parts of the world. Finally it will assist in the training of an extremely promising young scientist.